Cache-Aware Database Systems on Modern Multithreading Processors

IIS-0534389
Kenneth A. Ross <[email]>
Columbia University

Cache-Aware Database Systems on Modern Multithreading Processors

This project studies how to best utilize the resources available in
modern processors in the development of database system software. A
primary objective is avoiding cache interference between threads in
multithreaded and multi-core processors, so that performance scales
well as the number of cores/threads increases. A variety of
techniques are considered, including multi-threaded algorithm design,
threads explicitly devoted to resource management, and scheduling
algorithms that are aware of thread interference patterns.
Simulations and implementations on real hardware are used to measure
the effectiveness of each approach.

The project will result in the development of algorithms designed for
the global management (and minimization) of processor- and
memory-related delays in database systems. Based on preliminary
experiments, overall improvements in throughput of thirty to fifty
percent are expected. A database prototype will be developed, and
made available for download over the web.

This project has relevance to commercial and public-domain database
systems. Performance improvements would enhance the experience of
database system users, and reduce hardware requirements for a given
level of performance. This project makes significant contributions to
education through reseach projects, a new advanced course, and by
providing a prototype system for use by others.

Project-related information can be found at
http://www.cs.columbia.edu/~kar/fastqueryproj.html